The Trail of Time at Grand Canyon: Planning and Implementation

The University of New Mexico, in collaboration with the National Park Service (NPS) and the Grand Canyon National Park (GCNP), will plan the "Trail of Time," a signed and scaled walking trail with exhibits that interpret the geologic history of the Grand Canyon. Scaled so that one meter equals one million years of earth history, the "Trail" will engage visitors in learning about deep time and how geologic history is recorded in the rock record. The planning activity will involve defining specific learning goals based on visitor studies and work with the NPS Interpretation Division. The "Trail" will help 5,000,000 annual visitors to the Canyon learn about the scale of geologic time, the local geology of the Canyon and the process of science.